Graphics Workstation for Undergraduate Teaching

This project is purchasing a network of six graphics workstations that, together with existing Macintosh and DEC computers, serves as the basis for new course developments in the area of computational chemistry within the undergraduate curriculum in the chemistry department and the Pharmacology Program of the biological sciences department. The new computers are being used in courses in Freshman chemistry, organic and advanced organic chemistry, biochemistry, polymer chemistry, computational chemistry, and upper-division pharmacology courses and are being used to support undergraduate research projects in the academic year and the summers. The capabilities of this new instrumentation makes it possible to communicate to students the reality and excitement of modern developments in chemistry and to involve these students in exercises and projects that will give them "hands-on" access to these computational techniques as an integral part of our undergraduate curriculum. Thus far, experimental courses in this area have been very enthusiastically accepted by students and give students a set of skills that serve them in graduate and professional schools and careers in the bulk chemical and pharmaceutical industries.